Presidential Faculty Fellow: Three-Dimensional Image Processing

This program has two major components: research and teaching in image processing, both having a focus on three-dimensional data. The research component is divided into two major thrusts: 1. the development of new methods for estimating motion in three dimensions from three-dimensional data sets. The first aim involves optimizing data acquisition methods given a prior stochastic description of the motion and assuming the use of a certain optical flow method. The second aim explores the theory of three-dimensional vector tomography and its implementation using a magnetic resonance scanner. 2. The estimation of shape from three- dimensional data sets. This topic focuses on active surface methods: the definition of new active surfaces, the algorithms and their convergence properties, and the use of active surface methods for 3-D image registration. The teaching component of this grant has two main objectives: 1. to develop a state-of-the-art signal and image processing laboratory, and, 2. to develop new courses and textbooks on image reconstruction. The overall goal is to provide a comprehensive educational program at the cutting edge of signal and image processing